Mathematical Sciences: Representations of Reductive Algebraic Groups and Related Groups

This award is concerned with the representations of reductive groups in prime characteristic and of related infinitesimal groups, as well as of quantum groups at a root of unity. The principal investigator will investigate construction of graded structures on representation categories of restricted Lie algebras and their quantum analogues; explicit bounds for the truth of Lusztig's conjecture and investigation of its failure for small primes; applications of deformation categories to get more precise information on endomorphism algebras and projective functors; and cohomology varieties for higher Frobenius kernels and their quantum analogues. A group is an algebraic structure with an operation defined on it. A group is called an algebraic group if its elements satisfy a polynomial identity. Algebraic groups are important for several different areas of mathematics, as well as physics.